Sequential and fusion attractors as a mechanism for complex rhythm generation and neural binding in recurrent networks

Brains efficiently generate complex behaviors using a relatively stable structure and limited resources. In contrast, modern artificial intelligence (AI) systems rely on large networks that are computationally expensive, difficult to interpret, and often limited to solving a given set of tasks at a time. This project addresses these limitations by developing a novel "bottom-up" mathematical framework to understand how brains generate behavior by flexibly recombining simple skills. Specifically, this project focuses on a modular approach in which simple building blocks can be mixed and matched to obtain complex functions. These insights are then applied to the design of hardware that is biologically inspired, cheaper to implement, and easier to interpret. At the interface of neuroscience, mathematics and engineering, this project offers impacts for the fields of biotechnology and robotics by advancing the theoretical foundations of neuro-inspired hardware engineering. Additionally, the project will involve students from undergraduate and graduate levels, and from various disciplines, including mathematics, neuroscience, computer science, and engineering, thereby preparing an interdisciplinary skilled workforce for advanced careers in both industry and academia.

This project provides a mathematical framework for the design of recurrent threshold-linear networks (TLNs) capable of generating both static and complex dynamic patterns of activity. TLNs are mathematically tractable yet rich dynamical systems, they have a long tradition as computational models of the brain and, because they share mathematical formalisms with machine learning, their analysis is complemented by state-of-the-art optimization algorithms. This project focuses on analyzing the dynamics of modular TLNs composed of simpler subnetworks whose dynamics are well-understood, allowing the global dynamics of the network to be predicted from local ones. The proposed research focuses on two families of networks. The first consists of networks that support coexisting sequential attractors (which might involve the same group of neurons in different patterns), ideal for modeling cyclic processes like locomotion. The second consists of networks that support the coexpression and concatenation of attractors, ideal for modeling neural binding and multistep behavioral sequences. Concurrently, the theoretical insights gained from exploring these architectural families will be applied to modeling ultraslow neural sequences in the medial entorhinal cortex, binding of object and grip in a delayed reach task, and building modular neuromorphic hardware. Ultimately, this project provides foundational work for translating biological circuit mechanisms into efficient and interpretable analog hardware capable of autonomous pattern generation.